Support for Participation in Logic and Computational Complexity: Workshop in Honor of Neil Immerman

The grant provides travel support for graduate students to attend the 2014 Logic and Computational Complexity Workshop that will take place in Vienna, Austria, on July 12-13, 2014, which is taking place during the Vienna Summer of Logic event, which encompasses the Federated Logic Conferences (FLoC'2014). Funding for student travel has significant broader impacts because of the opportunity it gives the students to become part of their research community, discuss their research with others, listen to and meet with leaders in the field. This workshop is international and provides an international dimension, because students will have experiences relevant to becoming part of a global workforce.